Theoretical Astrophysics Research

9321847 Elitzur Dr. Elitzur will continue theoretical research under the common theme of application of radiative transfer techniques for spectral line analysis and infrared emission in various astronomical environments. Those environments include star forming regions, the envelopes of late-type stars, and external galaxies.